Elementary Particle Physics

This grant covers experimental Elementary Particle Physics research by a group at Vanderbilt University in collaboration with other NSF and DOE supported scientists. The group will conclude studies of the production of jets of particles in high-energy photon-nucleus collisions by comparing the experimental yields with Quantum Chromodynamic calculations within the standard picture of interacting quarks and leptons. The group plans to help construct a deep underwater cerenkov detector to study ultrahigh energy neutrino and muon induced cosmic ray showers and hence search for galactic or extragalactic point sources of ultrahigh energy cosmic rays.